The 1995 International Conference on the Physics of Strongly Coupled Plasmas; Ginz/Rugen, Germany; September 11-15, 1995

9513931 Kalman This grant is for support of students and young researchers to attend the 1995 International Conference on the Physics of Strongly Coupled Plasmas in Ginz/Rugen, Germany. ***